Combinatorial Problems in Typed Lambda-Calculi

This award supports research in the area of typed lambda-calculi, with special emphasis on the combinatorics, complexity, and logic of type inference. Specific problems concern type- reconstruction, type-checking, and related aspects, and are motivated by design and implementation issues in programming languages. Particular attention is given to algebraic characterizations of these problems. Such characterizations give rise to new and more general forms of unification, in particular semi unification, often with applications in other parts of computer science (term-rewriting systems, database theory, computational linguistics). Based on some of the same techniques, the project explores problems in two research areas, both with important applications: (1) higher-order matching \ (for automatic theorem proving) and (2) extensions of ML-style polymorphism (for polymorphically typed programming languages).